Theoretical Studies of Hadronic and Nuclear Dynamics

The main thesis in our proposed research is to investigate the dynamics of hadronic and nuclear systems with a particular emphasis on its relation to the underlying dynamics of quarks and gluons and also with a view to using nuclear phenomena for studying symmetries of elementary processes. Specifically, we study the consequences of nuclear chiral perturbation theory as applied to few-nucleon systems, in-nuclear-medium meson properties, the quark structure of hadrons, phenomenology of axial U(1) symmetry, proton-antiproton annihilation at low energies and neutrino-nucleus reactions and their application to astrophysics.